Approximation techiques for MHD flows in highly heterogeneous domains

The objective of this research program is to develop solution methods for
solving magneto-hydrodynamics flows in three-dimensional domains comprising conducting
and nonconducting regions and variable/discontinuous magnetic
permeability. The method to be developed will be robust enough to
handle High Reynolds flows and high Prandtl numbers. Lagrange finite elements
will be used and novel mathematical formulations will be developed
to make Lagrange finite elements to converge
in non-smooth domains and with non-smooth interfaces.
The code to be developed will be fully parallel.
The applications targeted
are the geodynamo, sea-water/oil separation and liquid metal flows.
The solution strategy to be developed will be
flexible enough so as to be easily modifiable to simulate plasma flows
in Tokamak geometries and thus to contribute to the ongoing global
international effort on magnetic confinement of plasmas.

The focus of the research program is to propose and analyze new
numerical strategies for simulating three-dimensional fluid flows
interacting with electromagnetic fields in heterogeneous media at high
speed. One phenomenon of interest is the so-called fluid dynamo
effect. The dynamo phenomenon arises in astrophysics. It is
responsible for the magnetic fields that are observed around stars and
planets with liquid cores. This phenomenon arises also in experimental
setups aiming at reproducing the dynamo effect. The fluid may be
plasma in stars and in tokamaks, molten iron in planets, or liquid
gallium or sodium in experimental setups. The dynamo effect may have
undesired consequence on heat extraction processes from fast breeder
reactors. This research will also prepare the ground for further
developments on plasma flows in Tokamak geometries. This research
project will involve large scale parallel computing and will lead to new
numerical strategies to simulate high speed flows interacting with
magnetic fields.